The UH Wide Field Imager

Klaus W. Hodapp
AST-0096833

The performance of the 2.2 meter Ritchy-Chretien wide field telescope of the University of Hawaii on Mauna Kea will be improved significantly by building and applying a broad-band optical system focal reducer to accurately match the field of view and the telescope resolution to the pixel sizes of a new 8Kx8K CCD focal plane. This new-capability instrument will enable searches for near-earth-objects, statistical studies of Kuiper belt objects, studies of the variability of young stars, searches for high red-shift supernovae.
***